An Acoustic Position and Obstruction Monitoring System for Neonatal Endotracheal Tubes

9712853 Wodicka The object of this proposal is the development of a new acoustic method to guide endotracheal tube (ETT) placement and monitor the ETT position and patency over time. The method consists of measuring the reflections of an audible sound pulse that is introduced into the ETT lumen and propagates into the airways. Patency and position information is derived from the timing of the reflections from the lumen and airways, respectively. This approach has proven extremely reliable in preliminary studies performed using adult-size ETT's in anesthetized canines. Thousands of patients including roughly 83,000 infants per year in the United States require placement of an ETT for ventilatory support. In every patient, insertion of the ETT is attended by the risk of life threatening and costly complications due to improper placement in the esophagus or a bronchus, or blockage due to secretions. The current standard of care that attempts to avoid catastrophic complications is expensive and requires the continuous monitoring of carbon dioxide in expired gas, in concert with regular assessment of tube location via chest radiographs and regular auctioning of the tube lumen to ensure patency. Despite the vigilance of health care providers, a significant number of complications associated with ETT use occur each year with the disproportionate number occurring in infants where the smaller tolerances by geometry predicate higher risks.